Regulation of Expression of the Calmodulin-Related TCH Genesin Plants and Cultured Cells

The long-term objective of this laboratory is to elucidate the molecular mechanisms and the functional components involved in the regulation of plant gene expression in response to environmental stimuli. Comprehension of these sensory and response pathways is essential for understanding the dynamic nature of plant development. The expression levels of five genes, the TCH genes of Arabidopsis, are rapidly and sharply increased in response to diverse stimuli, such as rain, wind, touch, heat shock and darkness. Three of the TCH genes encode calmodulin-related proteins, suggesting roles for calcium ion and calmodulin in the signal transduction pathways. The focus of this work is to characterize the regulation of the calmoduln-related TCH genes in plants and cultured cells in response to diverse environmental stimuli. First, the transcription initiation sites, intron/exon boundaries and polyadenylation sites will be defined and the full-length cDNA sequences will be determined for the calmodulin-related TCH2 and 3 genes. Subsequently, the tissue- and developmental-specificity of TCH 2 and 3 mRNA accumulation in plants will be examined, with the emphasis on comparing the characteristics of the responses to different stimuli. The processes of habituation, desensitization and recovery will be investigated using TCH mRNA accumulation as an assay. Additionally, the regulation of TCH 2 and 3 gene expression by mechanical stress, heat shock and calcium ion will be addressed using cultured root cells that are relatively homogeneous and easily manipulated. Because of the universal role of calcium ion a second messenger in eukaryotic cells, elucidation of the regulation of expression of genes that encode calcium ion receptors will likely be relevant for the great variety of plant and animal cells that transduce extracellular stimuli into calcium signals.